A System for Micro-Mechanical Spring Design

Specific technical objectives of this research are to: o Evaluate the current understanding of material properties (primarily for silicon, bulk and thin films), as a basis for good spring design. These properties will not only include the tensile and shear moduli, but also the yield strength, fracture, and fatigue properties. o Determine a set of commonly required spring configurations (cantilevers, spirals, bridges, etc). o Analyze (utilizing micro-finite element analysis) spring configurations for their compliance, resistance to manufacturing errors and tolerances, resistance to stress concentrations, fatigue, etc. o Analyze spring configurations for their micro- dynamic responses, resonant frequencies, etc. o From the above, extract a set of rules for designing standard springs. The rule-set will depend upon: material; stiffness (or natural frequency) required; space and orientation required; preferred technology, and other aspects. o Integrate the rule-set into a computer-aided micro-mechanical spring/oscillator design system.